Upgrade of a Wide-bore 300 MHz NMR Spectrometer

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at University of Missouri at Columbia acquire an upgrade of an existing 300 MHz NMR Spectrometer. This equipment will enhance research in a number of areas including the following: (1) Investigation of DNA cleavage by 1,2-Dithiolan-3-one 1- oxides, (2) Studies of 4+3 cycloaddition reactions, (3) Organization of vascular metabolism: structural basis and function, (4) Nitrosamine, nitrosation, and related diazenium ion chemistry, and (5) Determination of enzyme mechanisms Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.